Travel Support for 1st IEEE International Conference on Mobile Ad-hoc and Sensor Systems (MASS 2004); October 25-27, 2004; Fort Lauderdale, FL

This grant is supporting travel for student authors to the MASS 2004 conference.

Recent research on wireless networks and mobile computing has concentrated on single-hop networks, where network nodes communicating directly to a fixed infrastructure such as cellular or satellite systems. In ad-hoc and sensor networks, multi-hop scenarios where network nodes communicate via other network nodes are dominant. The increasing importance of this area has led to the organization of the 1st IEEE International Conference on Mobile Ad-hoc and Sensor Systems (MASS 2004). MASS 2004 will be held from October 25-27, 2004 in Fort Lauderdale, Florida. The meeting is sponsored by the IEEE Computer Society Technical Committee on Distributed Processing and Technical Committee on Simulation.